Capacity Building in Computer Science as a Driver of Innovation

This study examines the relationship between capacity building in computer science and economic innovation. Data will consist of 1) a quantitative survey of computer science researchers; 2) in-depth qualitative interviews with researchers, students, policymakers, funders, entrepreneurs and staff of nongovernmental organizations; and 3) video ethnographic observation of researchers in their everyday interactions with students, funders, community organizations and other nodes of the innovation system.

In addition to presenting results at scholarly meetings and in scholarly publications, the PIs plan an outreach event in Washington, DC for congressional staff, international policy makers and managers of technology companies.